Workshop on Approximation Algorithms, Mar 24-26, 1993, New Brunswick, New Jersey

The Workshop on Approximation Algorithms will be held at Rutgers DIMACS on March 24-26, to bring together researchers working on upper bounds with researchers working on lower bounds. DIMACS will provide some support for the participants. This proposal will support travel expenses of some participants who could not otherwise attend, including graduate students.